NeTS-FIND: An Architecture for a Diversified Internet

This project explores the implications of making virtualization a central component of a new Internet architecture, with the explicit objective of encouraging a diversity of end-to-end networks. The project explores how virtualization can be integrated into the Internet architecture and how it can be delivered, by multiple cooperating organizations, on a large scale and with sufficiently high performance to make it economically compelling. The project activities include development of a complete architecture for a diversified Internet and experimental demonstration of major components of that architecture.
The project also explores how these mechanisms can be effectively used, by developing and demonstrating two complete end-to-end networks that operate within this diversified Internet.

A diversified Internet has the potential to have a broad impact on society at large, by enabling a more competitive environment in which innovation on advanced network services can flourish.